Search for New and Superior High Temperature Thallium-based Superconductors

9318946 Sheng The proposed work will focus on the following aspects of the high temperature superconductor processing and characteristics: a) systematic elemental substitutions for the existing layered high temperature superconducting materials; b) design and synthesize new layered superconductors with new structure; c) to identify possible superconductivity at about 200K thallium-based ceramics; and d) to improve the flux pinning capabilities of the existing thallium-based superconductors for practical application. The Principal Investigator is one of the inventors of the thallium-based superconductors. %%% The proposed studies are directed toward the objective to discover new and superior oxide superconductors and to improve the existing superconductors for high tech applications by increasing their flux pinning capabilities. ***